Extremal and probabilistic combinatorics

Drs. Lu and Szekely build on their previous work in combinatorics and graph theory and continue their research on problems related to graph visualization and graph drawing; random graph models; tree indices relevant for chemistry; models for biomolecular sequence evolution; and phylogeny reconstruction for species evolution. They also continue their long-running projects on fundamental questions in extremal set theory, extremal graph theory, and discrete geometry.
The particular problems on which they work include
* the further development of the theory of crossing numbers
of graphs and of better graph drawing algorithms;
* improving current bounds on Turan type extremal problem on hypergraphs,
one of the toughest problems in extremal combinatorics;
* improving our knowledge on Property B, where notoriously
hard problems provide testing ground for new techniques;
* extending current probabilistic tools in combinatorics
to be applicable in a new or more general scenario;
* work towards the unification of random graph models;
* searching for new insights on antichains and on
intersecting families of subsets;
* reach a much better understanding of the Randic index,
a concept of extremal graph theory that has been introduced and widely
used in chemistry;
* continuing the study of models of biomolecular
sequence evolution and phylogenetic trees, of phylogenetic tree
reconstruction algorithms, in particular the maximum likelihood method,
and investigating the phylogeny problem in the setting of inverting
random functions.

There is increasing demand to understand ``optimal''
extreme structures and ``typical'' random structures in discrete mathematics as this understanding often leads to new algorithms This project will investigate basic combinatorial questions about structures and will look for various applications of discrete mathematics in computer science, biology, and engineering.
In addition, the proposers plan to continue their interdisciplinary collaborations with colleagues from engineering, biology, statistics, and computer science, and expect to solve some of their new problems.